Integration of Basic Experimental and Multimedia Research Training in Psychology

This project integrates basic research training in psychology with student involvement in multimedia projects that analyze stress and coping research. Basic psychology research training involves courses in seven required and four elective courses. Basic science issues addressed in these courses involve student training in conducting and interpreting statistical analysis of data, utilizing appropriate research designs, developing critical analysis research skills, and developing capabilities to complete independent and honors research in psychology. Students complete a graded series of increasingly advanced data analysis and experimental design projects that fit into a competency growth plan for training students in the scientific approach to psychology. Multimedia projects are located in one required course (theories of personality) and four elective courses in which students are involved in creating multimedia visualizations of concepts related to stress, coping, and emotion. This project upgrades the computer lab to enhance capabilities in both basic research and multimedia training. This project allows continued development of student projects that enables them to visualize the interactions among behavioral, physiological, and cognitive aspects of stress and coping. Involvement of students in multimedia projects attempts to build upon Chute's "Classroom 2000" model in which students directly experience and work with course materials in a multimedia format to enhance active learning.